Estimation for non-linear processes with long memory

Long-memory is characterized by a covariance function which decreases
slowly to zero as the lag increases. The decrease is so slow that the
corresponding spectral density blows up at very low frequencies, a
phenomenon also known as ``long-range dependence'' or ``1/f noise''.
Because wavelets are associated with scaling, it is natural to
attempt to use wavelets in order to estimate the intensity of long
memory in time series. The advantage of wavelets on Fourier methods
is that there is no need to difference the time series if these are
not stationary. Fourier and wavelet techniques have been applied to
processes with long memory that are Gaussian or linear. This study
focuses instead on non-linear processes with long memory, for
example, outputs of non-linear filters with Gaussian or with linear
inputs. The goal is to derive effective techniques to estimate the
exponents which characterize the intensity of long-memory, in these
more realistic contexts.

Time series are a collection of data points collected through time,
for instance income or temperature. The dependence between these data
points may be weak or strong. When this dependence is strong the time
series is said to have long memory. Time series with long memory
appear in a number of applications, for example, in economics
and in the analysis of traffic in computer networks.
The goal of this study is to understand their properties
and how to estimate them.